System Dynamics Measurements and Experimentation at Home

Engineering - Mechanical (56)

This project focuses on significantly improving the understanding of system dynamics concepts among undergraduate students. The targeted goals of the project include: 1) development of instructional material in the form of take-home software and hardware kits for additional concept experimentation outside of the classroom and laboratory environments; 2) increasing student critical thinking skills through augmented experimentation of course concepts; and 3) increasing the retention of engineering students who currently have limited interaction in laboratory courses due to extraneous factors. Junior and senior level Mechanical Engineering students and courses benefit from this new curriculum enhancement.